Dissertation Research: Longear Sunfish and their Acoustic Environment: Physical and Biological Effects on Signal Design

Ryan 9801041 Few studies have examined the function of and natural variation in acoustic signals in the 65 families of coniferous fishes. This lack prevents scientists from understanding patterns and processes in communication across vertebrates. The structure, context, and variation of acoustic signals of longear sunfish (Lepomis megalotis, Centrarchidae), a relative of the largemouth bass, will be studied to establish the basis for future work and comparative studies. Calls of these fish will be recorded in natural populations, analyzed using wavelet transforms, and behavioral context videotaped to characterize the signal. Hypothesized functions will be tested using playback experiments. Acoustic signal variation at various levels will be determined to verify that population differences are not due exclusively to variation within an individual or between individuals. Two possible sources of variation, physical and species composition differences, will be examined. The physical differences between sites in underwater sound propagation and degradation will be determined using playbacks of tem signals. Alternately, most Lepomis species compete for acoustic space and produce viable hybrid offspring, which may result in differences in signals at sites with multiple species. The calls of hetero specifics will be recorded, analyzed and compared to longear sunfish calls to determine call parameter overlap. The microgeographic variation in acoustic signals in longear sunfish may indicate localized population divergence. Understanding this variation may be important in understanding the implications of habitat fragmentation and degradation. Research on acoustic signals in natural populations of sunfish will contribute to general knowledge of acoustic signaling systems and the selection acting on them, as well as specific information on teleost acoustic behavior and underwater sound propagation.